Computer Engineering Course for K-12 Teachers Assisted by First-Year ECE Undergrads

A sophomore-level course will be designed that introduces computer engineering
fundamentals to pre-service science and math teachers in a highly interactive, hands-on
environment, using active, cooperative learning methods. In cooperation with existing
efforts, it will also be adapted to appeal to in-service teachers seeking a Masters degree in
science or math education. It will illustrate how to use microprocessor based, mini-data
acquisition systems, and robotics to create projects demonstrating physics and math
concepts satisfying the Maine Learning Results and other national education standards.
These materials will be distributed over the web.

A unique aspect of this effort will be the recruitment and engagement of honors-level
first-year Electrical and Computer Engineering and pre-service College of Education
students to help develop curricular content that will interest middle and high school
students. In-service teachers will be included in the development of pedagogy that
efficiently conveys the engineering material to future science and math teachers.

This project will introduce the engineering application of science and math, as well as
providing a bridge between such informal science innovations as First Robotics, First
Lego League, Bot Ball, etc. and the classroom environment. The major benefit, however,
to the engineering establishment will be the application of and emphasis on engineering
concepts to the science/math K-12 infrastructure. Through this course, pre-service and
in-service teachers will be equipped with the tools to illustrate engineering principles and
how they relate to concepts normally taught in conventional science and math courses.